The Centroid Decomposition and Other Approximations to the SVD

ABSTRACT
0204157
Funderlic, Robert E.
North Carolina State U

This section summarizes the progress the co-PI has made under the support of NSF grants DMS-9804759
(07/01/98 06/30/00)for the project Adaptive Control Algorithm for Adaptive Optics Applications and
DMS-0073056 (08/01/00 7/31/03)for the project Algorithms for the Inverse Problem of Matrix Con-
struction of the former,the objectives are to design,analyze,and evaluate adaptive control algorithms for
adaptive optics applications.The co-PI has established a mathematical framework for the linear econstructor
problem in adaptive optics,and has made progress in the understanding of a latency-delay control algorithm.
Fo the latter,the proposed objectives were to investigate both the theory and the practice of constructing a
physical model,described mathematically in the form of a matrix,from prescribed spectral data.The co-PI
has collected,classi .ed,and de .ned the egimen of inverse eigenvalue problems as a whole,and has developed
new numerical methods for tackling some inverse eigenvalue problems.Thus far,a signi .cant portion of these
objectives has been accomplished under the NSF support as is evidenced below.